Design Parameterization for CAD-Based Mechanism Optimization

The project "Design Parameterization for CHD-Based Mechanism Optimization", is studying how product solid models can be parameterized following a systematic approach to capture design intents in multiple CAD systems and determine if an accurate and efficient design sensitivity analysis can be developed that supports CAD-based mechanism optimization for industrial applications.